Comparing the Stratigraphy and Paleooceanography of CenozoicSiliceous Deposits of Russia and the Eastern Pacific Rim

9405397 White PI, U.S. collaborator Joyce Blueford, and Russian colleagues will conduct sedimentological, stratigraphic, paleontological and geochemical analyses of selected Cenozoic siliceous and organic- rich deposits of Russia, and compare these deposits to related units in California, and to deep-sea core material from the northern Pacific. This comparision will ultimately broaden our understanding of siliceous rocks and their integral role in paleoceanographic and petroleum research.